Pan-American Advanced Studies Institute on Mathematical Models of Population Dynamics; El Salvador; January 2006

This Pan-American Advanced Studies Institute (PASI) award, jointly supported by the NSF and the Department of Energy (DOE) will take place January 9-20, 2006 at the National University of El Salvador (UES) in El Salvador, on the topic of Mathematical Models of Population Dynamics. Organized by Dr. Ricardo Cortez of Tulane University together with Dr. Herbert A. Medina of Loyola-Marymount University, the institute will focus on mathematical models of population dynamics. Specifically, the three overarching topics of the institute will be: data and statistical methods, mathematical models of population dynamics and epidemiology, and computational and visualization methods. In addition, the institute will hold workshops (that include a computer laboratory) to prepare future scientists to work in the area of population dynamics.

One expected result of the Institute is to promote the use of statistical and mathematical models for the study of the spread of diseases, and the study of insect and fish populations. It is expected that the study will lead to applications to current social, economic and health problems in Central America and thus promote collaborative exchanges between U.S. scientists and those from Central America and Mexico. Materials presented at the Institute will be posted in a designated web site for further dissemination to the scientific community and to the public at large.